GEM: A Conjugate Study of ULF Waves at the Cusp

An integral component of the multi-agency U.S. Global Change Research Program (Our Changing Planet," Committee on Earth Sciences, 1991) is understanding and modeling the geospace environment. As part of its contribution to the U.S. Global Change Research Program, the National Science Foundation's Division of Atmospheric Sciences has established a new research initiative, Geospace Environment Modeling (GEM), with the goal of supporting basic research into the dynamical and structural properties of geospace, leading to the construction of a global geospace model with predictive capability. The subjects of the first GEM campaign are the magnetospheric boundary, the magnetosheath beyond it, and the connection from the boundary through the magnetosphere to the ionosphere. The cusp region is a rich source of ULF waves spanning the frequency spectrum from near dc to above 1Hz. This is a grant to study the ULF wave spectrum at cusp stations in conjugate hemisphere in order to investigate the conjugacy of the cusp at these sites and to identify wave generation mechanisms associated with the cusp.